Purchase of a UV-VIS Spectrophotometer

With support from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at Fort Valley State College will acquire a stopped-flow UV-VIS spectrophotometer. Research will focus on the following studies: a) the biological interaction of gold colloidal particles in antibody-antigen reactions; b) stability of laboratory peptide-DNA hybrids; and c) the photodegradation of organic water pollutants by visible irradiation of photosensitizing catalysts. .

Absorption spectroscopy using ultraviolet or visible light (UV-VIS) is one of the most standard methods in modern chemistry for quantitative and qualitative analysis. These studies will have an impact in a variety of areas including environmental sciences and biochemistry.